Synthesis and Electromechanical Behavior of "Smart" Ferroelectric Ceramics

9522504 Singh The objective of the proposed research is to study the effect of the nature and amplitude of cyclic electric fields on crack propagation. Most piezoelectric leadzirconium titanates (PZTs) are used under AC fields, where the combined mechanical and electrical loading can cause component failure. Finite element models developed in the current project will be extended to describe the electromechanical response of PZT under a variety of boundary conditions. In addition, a novel technique of laser Raman spectroscopy (LRS) will be applied to directly measure the distribution of crack tip stresses produced by applied electric fields. The results will be compared with stresses calculated using FEA models. The proposed research objectives will be accomplished by performing in situ crack propagation studies in PZT ceramics under static (DC) and cyclic (AC) electric fields, directly measuring electricallygenerated crack tip stresses in situ using LRS, developing a finite element model to describe the effect of applied electric field on crack propagation, and studying the influence of microstructure and composition on the induced phase transformations in PZT ceramics. %%% These studies will lead to a new and fundamental understanding of the electromechanical response of piezoelectric materials under combined electric and mechanical loads. A new techniques using LRS for directly measuring crack tip stresses will be demonstrated along with the possibilities of induced phase transformation in the strontium-doped PZT system. ***